Theoretical Studies of Interplanetary Magnetic Fields: Turbulence and Cosmic Rays

This project will continue theoretical studies and associated computer simulation and modeling of a range of basic solar wind properties and their interactions with cosmic rays. The PI will study the structure of the interplanetary magnetic field and plasma, emphasizing the effect of the field's structure on cosmic ray and energetic particle acceleration, propagation and anisotropies. In addition, the PI will observe the effect fluid flows such as the solar wind can help accelerate the solar wind near the sun. This understanding can then be used to probe distant, unexplored regions of the solar wind using cosmic ray observations.